RIA: Linear Constraint Databases

The incorporation of constraint technology in programming languages, although very recent, is a promising and effective tool for the development of software solutions to problems with complex modeling requirements. This research incorporates successful constraint technology (involving linear inequalities, linear programming, finite domains, and incremental constraint maintenance) with database technology, in a new framework of Linear Constraint Databases. These Linear Constraint Databases are motivated by and aimed at a number of application domains that require large persistent storage and are characterized by (1) spatio-temporal features, (2) constraint-based design and planning, and (3) large-scale (usually linear programming) optimization and analysis. The challenge in the proposed research involves achieving both efficient and declarative querying of large data sets involving constraints. A successful integration of constraint programming techniques with object-oriented or relational database systems is possible, given the current programming and database state-of-the-art. Also, it is challenging, given the demands for efficiency and high level specification. The impact of a successful integration could be significant in a number of important application areas. Moreover, it has the potentialto be an integral part of a new eneration of database management systems.